Molecular Analysis of GAP-43 Function

Growth-Associated Protein-(GAP)-43 has been implicated in a wide variety of phenomena in the nervous system. The physical characteristics of the molecule, together with its elevated expression during periods of neuronal growth and regeneration, suggest that it might play a role in the extension of nerve fibers toward their targets. GAP-43 also appears to be involved in some way in the regulation of neurotransmitter secretion in the mature nervous system, perhaps because it modulates several biochemical signaling systems within the nerve cell. Despite the accumulation of a large amount of experimental information on GAP-43, the precise function of the protein remains elusive. We have used a model cell culture system consisting of two closely related neuroendocrine cell lines which express GAP- 43 at dramatically different levels to investigate further the role of GAP-43 in neurotransmitter secretion. Our initial experiments demonstrated that the secretory response is highly correlated with the levels of GAP-43 expression in these cells. Subsequently, we have used molecular genetic approaches to manipulate GAP-43 expression and have obtained more direct evidence for a role of this protein in secretion. Our experiment system will thus permit us to determine the molecular basis of this role; this information may be relevant to the other postulated functions of GAP-43 as well.